Conference on Biochemical Engineering (Biochemical Engineering IX)

9500436 Wittrup This conference will bring together leaders, practitioners, and students to discuss the latest ideas and discoveries in biochemical engineering, and will emphasize efforts to expand the intellectual and industrial scope of biotechnology and the contributions which biochemical engineers can make to this expansion. The theme of the conference is that biotechnology is increasingly and interdisciplinary endeavor, requiring knowledge, methods, and expertise from biochemistry, genetics, chemistry, computer science, and chemical engineering to identify the most critical problems, to formulate the most creative and successful strategies, and to implement the most novel and profitable solutions. This interdisciplinary web of interactions is critical for the development of new products using biotechnology, and new processes for synthesizing and purifying the products of biotechnology. ***